NSF/Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1996

This action funds NSF - Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution. Gnetales, the presumed sister group to angiosperms, have many angiosperm-like characteristics, including flower-like reproductive units. This study focuses the evolution of the flower by determining the expression pattern of plant homeotic genes in the Gnetophyte, Welwitschia. It addresses the origin of flowers, the evolution of gene expression and the molecular-developmental basis of morphological change.